Function and Plasticity of Native NMDA Receptor Subunits

IBN-9604233 Curras The task of the nervous system is to receive, send, process, store, and retrieve information. Communication between neurons are accomplished through electrical and chemical signals. Glutamate is a neurotransmitter which serves as a chemical messenger in transmitting excitatory information between neuronal connections known as synapses. It is released into synaptic space, diffuses across the narrow gap, and binds to specific protein receptors. NMDA (N- methyl-D-aspartate) is a class of glutamate receptor that is involved in fundamental processes like development of the brain and learning and memory as well as brain disorders such as epilepsy and excitotoxic neurodegeneration. Recently, molecular cloning studies have identified five subunits which can be used to form NMDA receptors. Dr.Curras is using state-of-the-art electrophysiological, molecular-pharmacological, and anatomical technology to first identify the subunit composition in individual neurons and then to delinate each subunit's contribution to the NMDA receptor function and NMDA-mediated processes. She will examine the NMDA receptor properties in magnocellular neurosecretory neurons located in the supraoptic nucleus of the hypothamus. This brain region produces and releases vasopressin, an antidiuretic hormone essential for body water regulation. Dr. Curras will determine the changes in subunit expression of these neurons under various physiological conditions. These results will provide novel information on how specific NMDA receptor phenotypes contribute to the plasticity displayed by these neurons in order to adapt to different physiological processes. It will not only lead to a better general understanding of how neurons communicate but will help define the relation between NMDA receptors, neuroendocrine function and regulation, and water balance.